Integrating Experiment, Computation, Communication, and Independent Inquiry in the Physical Chemistry Laboratory

Chemistry (12) For many chemistry students, physical chemistry is the capstone course of their undergraduate careers. This project integrates laboratory and classroom experiences in physical chemistry while introducing students to modern experimental and computational methods and building skills in problem solving and scientific communication.
For the laboratory components of this project a nitrogen-pumped dye laser, workstations, and an FT-Raman modification for an existing spectrometer are being acquired. Enhancements adapted from both the educational and research literature are being designed to closely integrate the laboratory with the lecture course and introduce experiments that employ both computational and modern laser-based spectroscopic methods. The new activities are also designed to stimulate problem solving skills and inquiry based learning in independent student projects and provide experience in both oral and written communication.
A visiting instructor from an undergraduate institution is also participating in the project. The project impacts a wide range of students, including chemistry majors who take a full year of physical chemistry as well as students who take only a single semester.